U.S.-Germany Cooperative Research: Efficient Data Structures for Computer-Aided Design

9815662
Hachtel
This award supports Dr. Gary Hachtel and a graduate student from the University of Colorado-Boulder in a collaboration with Christopher Meinel of the Department of Information Sciences at the University of Trier, Germany. The research funded by this award will focus on the construction of very large-scale integrated (VLSI) circuits from very complex switching functions, and on verification of the systems constructed. The collaboration between the U.S. and German groups will combine the best of current research in complexity theory and binary decision diagrams and will lead to the application of new and more powerful methods to design problems in micro-electronics, computers, and software engineering. There is also a strong workforce-enhancement aspect to the award because the international research will extensively involve graduate students in the international collaboration.